Research on Practical Transient Test Techniques

This project is developing a new dynamic supply current-based alternative
to Iddq test for the next generation of ICs. The methods being investigated
are primarily based on a recently developed test metric, the energy
consumption ratio (ECR). Research on the project is being conducted on
three tracks: algorithmic-test, manufacture-test and self-test. The
algorithmic track develops test generation and fault simulation algorithms
for ECR test that target the detection of specific modeled faults. The
focus is on faults that are hard to detect with or escape traditional
methods. The manufacture test track focuses on the development of
fault-independent test methods for ICs. The objective is to develop methods
to use ECR-based test similar to those used in practice for Idd test. The
focus is on characterizing the defect coverage achievable with ECR test and
identifying test conditions which optimize defect coverage. The aim of the
self-test track is to develop a built-in self-test architecture for ECR
test. A robust dynamic current sensor is being designed and evaluated..